REU Site: Undergraduate Research Experiences in Functional Polymeric Membranes and Composite Materials

The University of Kentucky operates a Research Experience for Undergraduates (REU) to introduce students to research in functional polymeric membranes and composite materials. Ten undergraduate students are recruited every year for a two-month summer research experience, with a recruitment focus on students from colleges and universities that serve the Appalachian region. In addition to research activities, students attend weekly seminars and are offered the opportunity to participate in a professional conference during the academic year.
***